Biotite Equilibria in High Silica Rhyolites: Controls on Volatile Fugacities and Abundance in Bishop and Toba Tuff Magmas

9526527 Rutherford The proposed research is to determine the phase equilibria for high silica rhyolite beginning with the controls on biotite composition and biotite stability. The biotite-alkali feldspar-magnetite equilibrium is potentially a powerful tool for determining the pre-eruptive water fugacities, but has been of limited use because of the poor constraints on the ferric and ferrous iron composition of biotite as a function of pressure, temperature, and fluid composition. Two sets of experiments will be performed: (1) annealing biotite with alkali feldspar and titaniferous magnetite, and (2) hydrothermal experiments on samples from the Bishop and Toba Tuffs, all in the presence of mixed fluids (H2O, CO2 , F) of controlled composition. The ferrous/ferric composition of biotite will be determined by microtitration and micro x-ray photoelectron spectroscopy. The O, H and F contents will be determined by ion probe and electron microprobe. This research will constrain the stability and composition of biotite in high silica rhyolite, calibrate the biotite-magnetite-alkali feldspar equilibrium, and apply these results to determine the pre-eruptive conditions of the Bishop and Toba magmas.